The Collection, Synthesis, and Quality Assessment of Data Describing The Response to Human Needs Following the 1999 Turkey Earthquakes

Turkish government and non-governmental organizations failed to anticipate the scale of human needs following the August 17, 1999 earthquake. Scenario based needs estimation modeling is essential to the development of response and recovery strategies, plans and organizational structures needed to prepare for future earthquakes. The purpose of the proposed research is to identify, collet, synthesize and quality assure human needs planning data required to populate and calibrate these models before this data is lost or the ability ti interpret data is degraded. The resulting data bases will be made available on their internet for researchers and emergency planners.